Development of a Calculus Laboratory

A Calculus Laboratory is being further developed featuring student projects with large experimental aspects. In addition, a Laboratory Manual is being created, tested, and revised. The manual will be published by a commercial publisher as a part of the dissemination efforts.